MRI: LIVE: Laboratory for Immersive Virtual Experiments

EIA-0079800
Huang, Thomas S.
University of Illinois Urbana-Champaign

MRI: LIVE: Laboratory for Immersive Virtual Experiments

This proposal establishes the Laboratory for Immersive Virtual Environments (LIVE) which will provide a testbed for engineering and computer science research on distributed graphics, sensor integration, audio display, and human face, speech, and gesture recognition. Psychologists will use LIVE to determine how visual perception drives information extraction, navigation, and human movement. Scientists will use LIVE to explore and analyze their three dimensional datasets. Twenty-five faculty members from nine departments will use LIVE to build and understand virtual worlds and human interfaces. The heart of LIVE will be a fully enclosed, 6-sided, 10'x10'x10', backprojected virtual reality environment to be housed at the Beckman Institute and the University of Illinois.